Biogeographic Comparison of Structure and Dynamics of Reef Fish Assemblages

This project will investigate the structure and dynamics of fish assemblages in selected coral reef habitats of the eastern Caribbean. It will permit explicit comparisons between patch reef and continuous reef habitats at one site, and among comparable continuous reef habitats at several sites. Species composition and abundance will be determined, as well as temporal change in these, and (for some species) associated patterns of settlement and recruitment. At selected sites, dynamics of assemblages will use a consistent methodology, which has been used previously in studies on reefs in Australia, to collect comparable data on Caribbean reefs over several spatial scales up to regional (750km), and over annual and daily temporal scales. Current understanding of assemblage structure and dynamics emphasizes the "open" nature of these systems, and dynamics driven by, among other factors, highly variable rates of recruitment. However, supporting data for this model come largely from a single habitat type in a few Great Barrier Reef sites, and its generality cannot be assumed. This project will provide the information necessary for a close comparison, on several spatial and temporal scales, of assemblage structure and in addition, it establishes the essential descriptive baseline for Caribbean assemblage structure and dynamics from which the PI will be able to build testable process hypotheses in future work.